Development of a Quantitative Electrostatic Force Microscope

0076486
Atwater

This grant will help develop quantitative electrostatic force scanning probe
microscopy. The project includes modification of a commercial ultrahigh
vacuum scanning probe microscope and development of new electrostatic force
microscopy simulation software. The program comprised both ultrahigh
vacuum electrostatic force microscopy measurements and development and
testing of finite element electrostatic simulation software describing
tip-sample interactions, including van der Waals and electrostatic force
contributions . This will enable more quantitative understanding of
nanometer-scale charge distributions and low mobility electronic
transport. The immediate scientific use for the instrument will be in a
collaborative Caltech/Bell Labs/NASA-JPL multi-investigator research
program aimed at probing charge injection and storage in silicon
nanoparticle structures for nonvolatile memory applications. Information
and software needed to perform quantitative EFM will be disseminated to the
materials research community.

Electrically insulating thin films are critical and ubiquitous components
of electronic devices such as integrated circuits and micromechanical
devices. Trapping of electronic charge, whether by design or as an
unintended effect, is a common characteristic of insulating thin films. It
is desirable to be able to quantitatively measure the extent of and
mechanisms for charge trapping in order to better understand the
performance and reliability of insulating thin films. Scanning probe
microscope techniques such as electrostatic force microscopy have opened a
new vista in the understanding charge trapping in insulators because they
enable measurement at nanometer-scale spatial resolution and total charge
sensitivity down to the single electron level. To date, such electrostatic
force microscopy measurements have been used as a qualitative but not a
quantitative tool for understanding charge trapping in insulators. This
project aims to put the electrostatic force microscopy method on a firm
quantitative foundation, through a combination of measurements and
development of simulation software needed for quantitative
understanding. The results will be applied to characterize charge trapping
in nonvolatile floating gate memory device materials containing
semiconductor nanocrystals. These materials and the devices made with them
are very promising candidates for the next-generation of ultradense,
low-power nonvolatile "flash" memory chips like those now used widely in
portable electronic devices such as wireless telephones, pagers, electronic
cameras and personal digital assistants.